Operations of the US Arctic Research Commission

Abstract Brass, Garrett W. 9810580 This action continues the Interagency Agreement between the NSF and the Arctic Research Commission and provides for its continuing operations. The Arctic Research Commission was established under the Arctic Research Policy Act of 1984 (Public Law 98-373) and Executive Order 12501. The General Services Administration will provide administrative services to the Commission as specified in PL#98-373 Section 106(4) . This action fulfills the intent of Congress to provide FY 1998 funding for the Commission through the NSF.